Workshop on Applications of Ionizing Radiation for Decontam-ination of Environmental Resources; April 25-27, 1994; Miami, Florida

9409014 Kurucz This is an award to support conduct of a Conference and Workshop on recent advances made in uses of ionizing radiation for decontamination of solids, fluids and gases. The workshop will include presentation and discussion of results from research conducted under NSF Grant No. 91-08033 to the University of Miami and the associated subcontract with Florida International University's Drinking Water Research Center. This research has been conducted with a large, engineering-scale, electron-beam accelerator located at the Miami-Dade wastewater treatment plant on Virginia Key. The workshop will address progress made in destruction of hazardous organic compounds in contaminated water, soil and gaseous waste streams and the potential application of this environmental technology for disinfection of infectious medical solid and liquid wastes. The workshop is expected to result in identification of further needed research that has promise of advancing uses of ionizing radiation in engineering design of processes and systems for decontamination of environmental resources. ***